Modernization of Psychology Natural Science Courses

This project would provide contemporary research equipment to enable the psychology department at Holy Cross College to upgrade its natural science education. The Psychology Department has, in its short history, made significant progress in establishing a strong research component to its curriculum. However, its equipment has become antiquated and several courses and laboratories lack adequate scientific and computing equipment necessary to provide modern training. The department is currently revising its curriculum to require students to take a minimum number of electives falling within the natural science category of Psychology. This grant will provide up-to-date equipment for specific areas of instruction within this category: physiological, sensation and perception, and cognition and memory. Students will have the opportunity to work with modern equipment and program computers to design experiments, collect, and analyze data.